EAGER: An Exploration of Urban Community-Based STEM Models

This project examines the growing prominence of organizations focused on Science, Technology, Education and Math (STEM) and seeks to understand how sustainability of outreach and financing play a crucial role as the nation looks to meet the increased need for workers trained in technical fields. This project seeks to explore the characteristics of STEM New Orleans Louisiana (NOLA), a community-based program targeting underrepresented K-12 students. The project will provide insights into a model of STEM learning to investigate issues of equity, accessibility and broadening participation.